Scientific Computing Research Environments for the Mathematical Sciences (SCREMS) - Beowulf Linux Cluster Project

NSF Proposal Number: DMS-0215443
PIs: Kawczak, Cai, Lucas, Sun, and Zhu.

ABSTRACT

The Department of Mathematics at the University of North
Carolina at Charlotte will purchase computer equipment
which will be dedicated to the support of research in the
mathematical sciences. The equipment will be used for several
research projects, including in particular: a) fast
algorithms for wave scattering in layered media for
electronic packaging and geophysical exploration, b) a PDE
based nonlinear least squares approach to imaging in
diffusion tomography, c) tests for comparing mark-speciffic
hazards, d) pricing lookback-Asian options. The newly
established Ph.D. program in Applied Mathematics is
developing very rapidly and so are the demands for the
computing power coming from the body of graduate students
and researchers.

The Mathematics Department has played a prominent role in
the University's recent change in status to a doctoral status
by the state and continues to do so as the University
aggressively pushes its next goal of becoming designated
as Research Extensive. The availability of a high performance
computing server will be an integral part of the Mathematics
Department's continuing push to be at the forefront of the
University's research enterprise.